Software Implemented Fault-Tolerance (SIFT) Layer for Reliable Computing on Massively Parallel Computers

9361288 Holland This project will develop the Software Implemented Fault- Tolerance (SIFT) Layer for the purpose of enhancing the reliability and availability of applications running on massively parallel computers. The SIFT layer will handle the requisite detection, reconfiguration, routing, and recovery techniques necessary for the protection against hardware faults, transparent to user application. This project could lead to a cost-effective solution to unreliability in massively parallel computers for business and scientific applications. ***